Computers in Calculus/Laboratory Classroom

The Department of Mathematics at the University of Evansville plans to improve its curriculum by implementing a computer- oriented approach in the calculus-differential equations sequence and in a calculus course for majors outside mathematics, engineering, and science. The use of a computer algebra system in a computer laboratory classroom, for student exercises and projects, and as an instructional aid allows a shift of emphasis from manipulative skills and techniques to activities with the computer that promote discovery, development of intuition, more realistic and meaningful applications, student interaction, improved expository skills, and experience with the computer as a modern mathematical tool. As an early phase of the project, the Department of Mathematics is initiating an intensive effort with the major departments served to arrive at consensus on what manipulative skills and techniques the students should be able to perform by hand and what tasks are more appropriate for the computer. The results will serve as a model for mathematics departments with a heavy service load in the areas of engineering and/or the natural sciences.